Charge Structure of the Neutron

This research addresses a fundamental question regarding the nature of
the charge structure of the neutron --- one of the basic building blocks
of matter: What is the spatial distribution of the constituent quarks
within the neutron, which has a net zero charge? This question was
addressed in Jefferson Laboratory Experiment 93-038 by scattering
longitudinally polarized electrons quasielastically from a neutron in
deuterium. Deuterium consists of a neutron and a proton bound loosely
together; it represents the best neutron target available. In a
collision with the neutron, the electron transfers polarization to the
neutron. Both components of the neutron polarization vector lie in the
scattering plane: The transverse (or sideways) component is normal to
the momentum of the neutron, and the longitudinal component is parallel
(or antiparallel) to the neutron momentum. By measuring both the
sideways and the longitudinal polarizations, it is possible to extract a
quantity called the neutron electric form factor, which is designated by
the letters GEN. Measurements of GEN as a function of momentum transfer
are related to the spatial distribution of charge within the neutron.
The uncertainty in our knowledge of the interior charge density of the
neutron becomes smaller as measurements of GEN are extended to higher
momentum transfer. Knowledge of GEN is essential to understanding the
structure of matter. GEN is a fundamental quantity needed to challenge
models of nucleon structure, to make detailed microscopic calculations
of electric structure functions, and to interpret the results of
parity-violating experiments. The current research involves carrying
out and completing a detailed analysis of the data obtained from
E93-038, preparing the results for publication, and preparing and
carrying out a new experiment to extract GEN at still higher momentum
transfers.